Collaborative Research: Conference: NSF NeTS PI Meeting - Spring 2023

This project will organize a virtual PI meeting for the NeTS community, with a broad invitation provided to current PIs, eminent researchers in academia, aspiring PIs, early-career faculty and researchers from diverse backgrounds. The PI meeting will include sessions on future networking research challenges, early career advice and NSF programs.